A Computer-Based Laboratory for Undergraduate Research in Psychology

A micro-computer based laboratory is established in the Psychology Department of Bowdoin College to enhance undergraduate's understanding of basic principles of scientific research and their specific applications in psychology. Five micro-computers and the hardware and software necessary to interface them with other laboratory equipment (e.g., slide projectors, taperecorders) are being acquired. The computers are used to control stimulus presentation and to collect responses in studies conducted by students at three levels of expertise: (1) Students in the introductory course use the computers to obtain "hands on" research experience by conducting simple experiments that are coordinated with material covered in lectures. (2) Students in each of the Department's three experimental laboratory courses (Cognition, Language, and Research in Social Behavior) use the computers to conduct an original, full-scale experiment that the students design and carry out as a group. (3) Students doing senior honors projects and other independent research projects use the laboratory equipment in their advanced, original research projects. Use of the new equipment allows an increase in the amount, quality, and variety of psychological research conducted by students at Bowdoin. The institution is matching the NSF grant with an equal amount of funds.